Excellence in Research: Metaomics-based characterization of the mutually beneficial interkingdom “cross-talk” between algae and bacteria- it takes two to tango

Algae are typically considered nuisance organisms in the environment because some species can cause harmful algal blooms and/or red tides leading to beach closures and disruption of leisurely and fishing activities. However, some algal species, when grown under specific conditions, can solve a major global societal problem; namely, some algal species can aid in the cleaning of human-generated wastewater. Recent research using a newly isolated microalgae (Scenedesmus sp. strain AC-2) and bacterial strain (Pseudomonas sp. strain AC-1) has shown that the organisms form mutually beneficial partnerships resulting in faster clean-up of wastewater. The goal of this project is to better understand bacterial-algal symbiotic partnerships and to use this information to enhance the clean up of larger amounts of wastewater. This project will also offer minority students innovative research and mentoring opportunities.

A growing body of literature now refers algae as nature’s green gold because algal cells possess an unparallel ability to produce a wide variety of bio-based value-added products, such as biofuels (biodiesel, bioelectricity, biomethane and jet fuels), nutraceuticals/ pharmaceuticals (carotenoids, ß-Carotene, omega 3 polyunsaturated unsaturated fats (PUFA) and astaxanthin) and other products (cosmetics, bioplastics, starches proteins, oils and fertilizers). Most studies conducted to date have relied on the use of a single microalgal strain to obtain bioproducts, but recent findings indicate that symbiotic associations between bacterial species (Pseudomonas sp. strain AC-1) and microalgae (Scenedesmus sp. strain AC-2) can significantly enhance remediation of untreated wastewater concurrent to higher production of algal crude oil and potentially other value-added products. Therefore, the overarching hypothesis of this project is that a consortium of symbiotic bacteria and algal cells, when grown together, will result in mutually beneficial positive impacts, such as faster growth and higher yields of bio-based products. Conversely, algal and bacterial isolates, when grown separately, will disrupt the mutually beneficial symbiotic processes and manifest in a loss of positive impacts (e.g., wastewater nutrient depletion and crude oil yields). To address the overarching hypothesis, this project will do the following: 1) evaluate the interkingdom “cross-talk” between the newly isolated bacterial-algal symbionts using innovative experiments that rely on isotopically-labelled cells to trace shifts in cellular proteomes and metabolomes that correlate to mutually beneficial impacts; 2) utilize customized co-culture devices to experimentally validate the symbiotic networks identified between bacteria and algae; 3) apply bioinformatics and statistical analyses to characterize “cross-talk” between pathways; 4) train the next generation of minority students using the above cutting-edge research. This project will significantly enhance research and student training activities, and build upon the proven track record of innovative research-based education and training of underrepresented students in STEM disciplines. The proposed work will interface and leverage from ongoing NSF and other funded projects such as the NOAA-funded Center for Coastal and Marine Ecosystems (CCME); these projects continue to provide innovative research-based pedagogy and student training, particularly to underrepresented African American minority students. Obtaining a comprehensive and deeper understanding of the molecular underpinnings of bacterial-algal associations and mutually beneficial positive impacts will provide transformative findings for stimulating the algal-based green economy and advance sustainable developmental goals for society.